ROW: Experimental Investigation of Fluid Skim Entrainment in Small Circular Pores

This is a ROW-CAA proposal with the objectives of devising an experimental model for liquid-particles flow near a porous wall, and testing existing theories by comparing with experimental data. The work will be conducted in collaboration with City College of New York. The proposed research aims to clarify the mechanisms that contribute to the "exit concentration defect" in shear flow of a particulate suspension over a porous wall, with practical implications in fluidization, membrane filtration and blood circulation.